Optimal Estimation and Control in Aquifer Remediation with Incomplete Information

The objective of this project is to devise a newly method for prediction of the effects that pumping procedures used to decontaminate aquifers will have on the quality of water in the aquifer. The method being developed in this project combines simulation models of solute transport and fate, descriptions of spatial variability, probabilistic analysis of uncertainty, and optimization. The proposed algorithm is expected to be used to simultaneously estimate the aquifer parameters in making decisions on the location of wells and rate of pumping. Subject to constraints on decision variables and on reliability of meeting water quality standards, this method gives promise for optimizing the objective function while balancing the effects of model and parameter uncertainties. A newly developed estimation method will be incorporated in the optimization algorithm to improve the performance of estimation. Results of this project are expected to provide an approach for determination of the effects that aquifer remediation procedures will have on quality of water in the aquifer. This will include the identification of additional information that is needed before engineering design of the remediation procedure which may involve both injection and recharge systems supplemented by above- ground or in situ chemical or biological treatment procedures.